U.S.-Korea Seminar on Geographic Dimensions of National Social and Economic Policy, Seoul, November 1992

Two dozen Korean and American geographers and regional scientists plan to meet in Seoul in November 1992 for a five day conference examining "Geographic Dimensions of National Social and Economic Policy". Purpose of the conference is to review and evaluate (1) contemporary methods for measuring and describing spatial variations in economic growth, social development, and environmental quality; (2) the effectiveness of prevailing development and settlement theories in accounting for such spatial variations; and (3) ways the state intervenes to reduce spatial inequalities, why it intervenes as it does, and the extent that policies programs achieve intended results. Topics of special interest include housing provision, educational opportunity, health care, income maintenance, women's issues, general regional economic development, and environmental protection. This seminar is jointly supported by NSF and the Korean Science and Engineering Foundation.